Problem Solving with Computers for Girls

The Department of Computer Science at Northeast Louisiana University will conduct a three-week computer science workshop for twenty eighth and ninth grade girls. Participants primarily selected from a two hundred mile radius of Northeast Louisiana University will be involved in a multi-faceted program including computer science, other scientific areas, ethical questions and policies, and industrial tours. The computer science topics will be the latest concepts and will offer opportunities to participate in small group projects. A visiting speaker program will present a broad view of careers in science and mathematics.